Student Travel Support for the Tenth Symposium on Networked Systems Design and Implementation (NSDI)

This project funds approximately 10-12 US-based graduate students to attend the Tenth Symposium on Networked Systems Design and Implementation (NSDI’13) to be held April 3-5, 2013 in Lombard, IL. Participation in NSDI and similar conferences is a valuable and important part of the graduate school experience and will provides students with the opportunity to interact with more senior researchers in the ﬁeld, and exposes students to leading edge work in the ﬁeld. The conference focuses on the design principles of large-scale networks
and distributed systems.